Behavior of Floor-to-Wall and Wall-to-Wall Intersections

Masonry construction comprises a large portion of building construction in the U.S. and the world. Reinforced masonry construction use is increasing in moderate to higher seismic zones because of its apparent features of economy, fire safety, architectural flexibility, and ease of construction. The present state of masonry structural analysis and design and materials and construction technologies do not enable an accurate prediction of building behavior under lateral loads such as seismic loads. This research project will examine the behavior of floor-to-wall and wall-to-wall intersections of structure components. The research will utilize existing data in this analytical research effort. This will provide conclusions relative to monotonic and hysteretic behavior of planar intersection response and formulation of a viable analytical and numerical model of intersection behavior.